Spatial Coherence Effect Tomography for Biological Structural Analysis

9361730 Aye POC proposes an entirely new approach to tomography in which recording and reconstruction of the 3-D object is done in 2-D slices automatically, without significant computer assistance and with very high spatial resolution. This new process is based on reduced coherence interferometry and will be called Spatial Coherence Effect Tomography (SCET). SCET overcomes the limitations of both classical holographic and tomographic approaches. Previous attempts at 3-D tomographic imaging usually involved 2-D projection images and the heavy use of computers for data processing and display, thus reducing spatial resolution. Although holographic imaging can provide high resolution, it lacks an intrinsic tomographic interpretation. The proposed method is based on holographic recording using radiation with very short temporal coherence length which can overcome major drawbacks in techniques using such sources, e.g., x-ray lasers, while still preserving the advantages of both tomography and holography. Moreover, the method is simple and efficient because it can provide a continuum of high (spatial) resolution images of object slices in a single recording. This new system will produce low-cost, high-resolution tomographic imaging for biological structural analysis as well as other non-destructive-evaluation (NDE) applications. ***